Postdoctoral Fellowship: MSPRF: Integrability and Noise Sensitivity in the KPZ Universality Class

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Zoe Himwich is “Integrability and Noise Sensitivity in the KPZ Universality Class”. The host institution for the fellowship is the University of California - Berkeley and the sponsoring scientist is Shirshendu Ganguly.